Long Distance Reflexives

ABSTRACT The investigators will carry out research on the locality conditions applying to bound anaphora. The primary, though not the sole, focus of the study will be on contrasting properties of long-distance and local reflexives across languages by examining the characteristics of reflexives in a wide variety of languages. In addition to locality conditions, the study will investigate such related topics as the putative "subject-orientation" of long-distance bound anaphora. While the investigators will conduct the study within the framework of Government and Binding Theory, the major emphasis of the study will be empirical in nature: the determination of the range of facts related to reflexives crosslinguistically. The initial hypothesis is that despite appearances, reflexives obey the same locality conditions in all languages: Apparent long distance reflexives involve local successive cyclic movements. The investigators will test the empirical adequacy of this proposal and compare its empirical consequences with other current proposals such as feature percolation and the expansion of governing categories.